RAPID: Monitoring the Response of Transportation Cyber Physical Systems in the Wake of Hurricane Sandy

This proposal is to collect perishable data on the physical response of the transportation infrastructure in New York City following Hurricane Sandy. It makes use of a new human-in-the-loop smartphone-based crowd-sourcing sensing technology, called TrafficTurk. TrafficTurk is a smartphone application which enables intelligent, human?centric sensing of traffic flows during extreme events.

The aftermath of Hurricane Sandy represents a rare opportunity to observe transient behavior of a transportation network in response to a significant loss of physical infrastructure (due to flooding and gas shortages) and cyber infrastructure (due to loss of power for traffic control devices). The data gathered by this project, which will be shared with researchers across the country, will enable study of how traffic dynamics evolve after a major disruption to the cyber and physical components of a transportation infrastructure system. Potential benefits include improved preparedness and response to future disasters.